Collaborative Research: A Center for Parallel Processing

This project represents a cooperative effort between researchers at Tuskegee University and Purdue University. Faculty and students in the Electrical Engineering, and Computer Science at Tuskegee University, and Computer Science at Purdue University have performed considerable research in the proposed field over the past decade. The faculty of Tuskegee University will work together to establish the research and M.S. degree programs at Tuskegee University as their primary goal, as well as to further develop research at Purdue. The result of this project will be the establishment of a research program in Computer Science at Tuskegee University that will attract and train minority graduate students, thereby increasing the pool of available minority students qualified for research positions in industry. It is anticipated that some of the graduates of this program will continue on to PhD degrees at Purdue and other universities, increasing the number of minorities in high-level research positions both in industry and academia. However, these benefits notwithstanding, the anticipated results of the proposed research will be valuable in the development of parallel algorithms in various fields of science and engineering.